Collaborative Research: CPS-CIR: Enhancing Adolescent Micromobility Safety through Ubiquitous Sensing, Behavioral Science, and Community Engagement

The use of micromobility devices such as bicycles, electric bicycles, and electric scooters has grown rapidly among adolescents, accompanied by rising injuries and fatalities. More adolescents are riding these devices on roads designed primarily for motor vehicles and adult road users rather than adolescents who are still developing hazard perception, reaction times, and peer-influenced decision making. This project designs, tests, and validates a community-integrated safety framework that combines sensing, behavioral science, artificial intelligence, and immersive virtual reality to further evaluate the impact of various roadway features on adolescent riders' behaviors and decision making. A network of sensors will capture riding behavior, physiological responses, and roadway conditions. Artificial intelligence models will fuse these signals to reveal when, where, and why risky moments occur. A novel simulated immersive environment will then let adolescents safely practice the situations that challenge them most, with training that adapts to each rider. Working with high schools, families, transportation departments, health systems, and the national Safe Routes Partnership, the project is expected to deliver actionable infrastructure recommendations to cities and evidence-based safety guidance that communities nationwide can adopt. The work serves the national interest by advancing science and public health, supporting safer routes to school, and engaging students and trainees in engineering, computing, behavioral science, and transportation safety.

The goal of this project is to design, test, and validate a community-integrated cyber-physical system (CPS) that improves adolescent micromobility safety by sensing rider behavior, modeling risk in real time, and closing the loop through personalized training and infrastructure guidance. The project advances CPS research by integrating behavioral science and community insight into computational frameworks that transform how adolescent micromobility risks are modeled, predicted, and mitigated. The team will collect naturalistic riding data from adolescent participants on instrumented bicycles and electric scooters, capturing physiological signals, rider motion, and the surrounding road scene. These data will be complemented by controlled virtual reality experiments on physical bicycle and electric scooter platforms. The work addresses the sensorimotor fidelity gap in virtual reality simulation by coupling street reconstructions created from LiDAR scans with haptic actuation, allowing surface discontinuities such as potholes be rendered with measurable realism. On this foundation, the team develops trajectory prediction models built on diffusion, a class of generative machine learning methods. These models will fuse physiological signals with interactions between riders and infrastructure to predict high risk riding trajectories. A key contribution is a novel prediction framework for adolescent micromobility that distinguishes the hazard avoidance typical of adults from behaviors specific to adolescents, such as overcorrection under stress, risk taking influenced by peers, and delayed hazard perception. The project will also develop behavioral encodings that translate developmental, psychophysiological and social factors into quantitative model parameters, enabling models that adapt to adolescents’ behaviors. A multi-agent system will be designed to generate personalized training scenarios along each rider's riskiest predicted trajectories in virtual reality, adapting the training to each rider's needs. A methodology driven by community input ensures stakeholder knowledge shapes technical priorities, and the findings will provide planners, school districts, and policymakers with evidence on which infrastructure changes most effectively reduce risk for adolescent riders.